Hydrocarbon and Halocarbon Measurements During ACE-1

9418773 Blake This project is part of the Southern Hemisphere Marine Aerosol Characterization Experiment (ACE-1), which will be conducted in the remote Southern Pacific in 1995 using aircraft, ship-board, and ground-based measurements of a wide variety of chemical species, physical and meteorological parameters with the central goal of investigating the formation, evolution, and optical properties of atmospheric aerosol. In this component, whole air samples will be collected on-board the NCAR C-130 aircraft during most flights of the ACE-1 project. After the completion of each such flight, the samples will be shipped to the PI's home laboratory and assayed for about 25 halocarbons and 40 non-methane hydrocarbons. A five column/six detector gas chromatography apparatus will be used for analyzing the samples. The analysis of these whole air data will be useful for the interpretation of other measurements aboard the aircraft by providing information on the origin of the air encountered. The latitudinal profiles of halocarbons and hydrocarbons that will be obtained in the transit flights will provide useful information regarding source and sink distributions of different atmospheric gases. Vertical profiles for gases of different atmospheric lifetimes yield information on transport processes. These data will be useful for the atmospheric modeling community. Data taken during Southern Hemisphere vertical profiles over remote marine regions will be used for flux calculations, ultimately leading to source strength estimates for biogenic hydrocarbons and halocarbons.